GOALI: Fundamental Understanding of Metal-Nitride Thin Films using Plasma-Enhanced Atomic Layer Deposition

This Grant Opportunity for Academic Liaison with Industry (GOALI) award supports research to investigate transition metal nitride thin films grown with atomic-scale precision. These films have a wide range of applications considering the widespread economic impact of friction and wear on society and the need for novel conductor and superconductor materials for computing and quantum technologies. The project is a collaboration among Lehigh University, Florida State University (FSU), and industrial collaborator Veeco-CNT. The team of researchers brings expertise in thin film growth and characterization, tribology, and industrial film growth systems together to synthesize, characterize, and analyze the processing-structure-property relationships in these films. The outcome of the work will be a new understanding of the role of layer thickness and complex compositions on properties such as hardness and wear resistance. The project also includes educational and outreach components, including activities within K-12 schools and industry-focused lectures.

This work explores the highly controlled growth of transition metal nitride thin films using plasma enhanced atomic layer deposition (PEALD). Two themes guide the research - in the first, multilayer stacks will be grown using PEALD over a wide range of individual layer thicknesses from the sub-unit cell to ~10 nm and will answer questions about the precise role of layer thickness and solid solutions on mechanical properties. In the second theme, compositionally complex films with one to four transition metal elements will be grown to understand the role of compositional complexity and mechanical behavior, such as the role of valence electron characterization on wear rate. Films will be rigorously characterized by a variety of diffraction and spectroscopic techniques to understand structure and composition. The mechanical properties of the films will be investigated using tribological testing including measurements of wear rate, friction coefficient, and hardness.